Underrepresented Engineering Faculty Peer Mentoring Workshop and Mini-Summits

This proposal is to further support the efforts of the PI ro mentor faculty by hosting
three workshops/mini summits in conjunction with the Center for the Advancement of
Scholarship on Engineering Education (CASEE ). The first would bring together selected
African-American faculty at research universities in the summer of 2005 at the National
Academy of Engineering (NAE). The second workshop will convene a diverse group of faculty
at research universities in the summer of 2005. The third workshop will bring together
selected Hispanic American faculty at research universities in the fall of 2005. The
intent of these workshops is to develop an action plan in support of Dr. Grant's
conception of the Promoting Under Represented Presence On Science and Engineering faculty
(PURPOSE) Institute. In essence, this grant will actively develop, with the input of
successful faculty a peer mentoring infrastructure for underrepresented engineering
faculty.
Key aspects of this initiative will include:
(1)Identification of obstacles to the recruitment and retention of minority engineering
faculty.
(2)Identification of critical needs for an interdisciplinary, multicultural faculty peer
mentoring network
(3)Building effective faculty networks and initiating the creation of a roadmap for
institutional change.
The results of the workshops will be presented at professional meetings and made available
on web. The outcomes will also be disseminated to Engineering Deans at the ASEE meeting
in 2006 and 2007.